A Microscope and Cryostat for the Whitney Laboratory

This is a proposal to purchase an optical microscope and a cryostat for histological sectioning for use at the Whitney Marine Laboratory of the University of Florida. This equipment is particularly intended for immunocytochemical studies of development, secretion and signaling in marine animals. These studies employ of a variety of modern cell and molecular biological techniques, but since any findings must, ultimately, be evaluated with respect to the cellular or intracellular localization of the processes in question, the use of techniques for localizing specific molecules has become increasingly important. This group of investigators requests funds to acquire (1) a new cryostat to replace a very heavily used but aging unit whose operation is very inefficient and time consuming and (2) a research grade compound microscope which hitherto has not been available at the laboratory. These units will be housed in a central histology/microscopy facility that is currently being built.